Acquisition of an EPR(ESR) Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will enable the Department of Chemistry and Biochemistry at The University of Notre Dame to acquire a computer-controlled electron paramagnetic resonance (EPR) spectrometer with variable temperature capabilities. This equipment will enhance research which span a wide range of activities, from characterization of paramagnetic transition metal complexes including porphyrin and related complexes, single crystal studies, and studies of organometallic cluster species and metal ions in biochemical complexes and spin label applications. An electron paramagnetic resonance (EPR) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions.